CSR: PDOS: RIVER: Resource Management Infrastructure for Consolidated Hosting in Virtualized Data Centers

The recent resurgence of research in server virtualization
has created a lot of interest among providers of large-scale
data centers in employing this technology to design improved
solutions for managed hosting. Virtualization holds the promise of increased
degrees of resource consolidation with accompanying reduction in
operational costs of administration, repair, and electricity.
Designing efficient virtualized data centers
is therefore a desirable and worthy endeavor in multiple ways.
The transition from traditional hosting models
to a virtualized model is, however, not a trivial one. Realizing
the consolidation-related benefits that virtualization has to
offer requires a re-consideration of: (i) schedulers within the VMM,
(ii) mechanisms for resource usage monitoring and accounting, and
(iii) system-wide dynamic resource provisioning mechanisms.
This proposal identifies the key challenges that arise on
all these fronts in a virtualized data center, and
develops a comprehensive solution, called River, to address them.

River will make the following specific contributions: (i) improved
resource management algorithms
within the virtual machine monitor (VMM) that use both
horizontal (between the schedulers in the VMM) and vertical
(between VMM and hosted OS schedulers) co-operation,
(ii) efficient and stable dynamic resource provisioning, and
(iii) systems primitives that would provide new opportunities
to the provisioning algorithms for improved cost-cutting via
reduction of virtualization overheads. A prototype River data center based
on Xen will be developed and resulting code
made available to the community. Finally, we will
re-design the labs associated with the systems courses at Penn State to
employ virtualized hosting of class projects.